Travel Support to Annual Unification Workshop; Dagstuhl, Germany; Summer 1992

This grant is to support the travel of six US researchers in unification theory to the Annual Unification Workshop to be held in the Dagstuhl International Conference and Research Center in Dagstuhl, Germany. The grant would fund only airfare, as all other funding is provided by the Center. There has been little interaction between the American and European researcher in unification theory although there is a great deal of important work in this area taking place on both sides of the Atlantic. This grant will bridge this gap, and bring together the two communities in order to share our knowledge and foster continued cooperation.